Proposal to Provide Workshop(s) to Utilize the Expertise of MIEs to Expand The K-12 Pool of Potential STEM Graduates

Abstract
The McKenzie Group (TMG) proposes a two-year workshop and planning pilot initiative
to support the NSF Model Institutions for Excellence (MIEs) (and subsequently other
institutions) to broaden their strategies for recruiting and preparing African-American,
Latino, and Native-American students to pursue careers in science, technology,
engineering, and mathematics (STEM). As the first stage towards developing a
framework for bridging STEM training and recruitment efforts undertaken by MIE
institutions at the undergraduate level with those implemented at the middle school and
secondary education levels, TMG seeks funding to convene representatives from the
six MIE institutions, MIE graduates who are now graduate students or serving as
professionals in STEM fields, high school counselors, representatives from
community colleges, recognized researchers and practitioners in K-14 or High
School-College partnerships, and representatives from exemplary pre-college STEM
programs serving African-American, Latino, and Native American students. The
workshop convening will permit these researchers and practitioners to plan an
integrated, research-based design and framework for implementing appropriate
programmatic strategies that eventually will then be piloted at MIEs and 1 or more
non-MIE university sites. During the pilot phase, TMG will provide each site with support
for addressing programmatic challenges and enhancing success.